Reconstructing the late-Holocene hurricane climate of the northern Gulf of Mexico coast

For centuries, hurricanes have been an important factor in the climate of the Gulf Coast region of the United States, and they play a major role in causing coastal landform changes, as ecological agents, and as hazards to life and property. Hurricane activity in the Gulf of Mexico region may be linked to El Nino-Southern Oscillation events and to sub-Saharan droughts. The short length of the documentary hurricane record together with the rarity of severe, category 4 and 5, hurricanes make it impossible to estimate the long-term frequency of such events. Reconstruction of the prehistoric record of hurricanes and the deciphering of long-term changes in hurricane activity depends on proxy data which can be obtained from coastal lake sediments. This project seeks to demonstrate that coastal lake sediments preserve a stratigraphically and chronologically distinct record of major hurricane strikes in the form of sand layers. The proxy for a number of sites will be correlated to identify temporal and spatial variations in hurricane activity in the northern Gulf of Mexico region, and these will be related to global events such as El Nino and sub-Saharan droughts. This study promises to yield a comprehensive history of the late-Holocene hurricane climate for the northern Gulf of Mexico region by extending previous research from a single site to lakes and marshes across the entire region. In this way, the documentary record of hurricanes can be extended back several millennia, and the frequency of occurrence of severe hurricanes can be estimated. The research will employ radiometric dating of lake sediment cores to identify hurricane events and to establish a regional climatic signal. This information will permit a comparison with other late-Holocene climatic changes from other parts of the world to further an understanding of global processes and regional linkages in the interdisciplinary study of global change.